Capstone Design Conference (June 13-15, 2007)

Engineering - Other (59)

This project is providing partial support for a capstone design conference. The conference is being planned by an organizing committee consisting of faculty members from several major universities along with industrial representatives from several companies. There will be about 150 participants from a wide range of engineering programs and the conference program includes presentation, panel, and poster sessions along with several keynote speakers. A conference booklet containing the abstracts of all conference presentations and other information is being prepared; a conference CD containing the full length papers that were accepted for the presentation, panel, and poster sessions of the conference also is being distributed; and the ten best papers of the conference along with a detailed conference summary are being made available through an on-line ASEE publication.